2000 Cold Spring Harbor Laboratory Conference on Mouse Molecular Genetics being held in Cold Spring Harbor, New York, on August 30-September 3, 2000.

Abstract
Grodzicker
Stewart
MCB-0076046

The Mouse Molecular Genetics Conference will be held at Cold Spring Harbor Laboratories August 30-September 3, 2000. The use of the mouse as a model system for understanding normal development has increased rapidly over the last few years. This conference will bring together a diverse group of scientists studying various molecular and genetic aspects of mammalian development and provide a format for the exchange of ideas and information among both junior and senior scientists.